Turbulent Mixing in Stratified Tidal Flows

Peters 9618287 The data analysis of three microstructure experiments in the Hudson Estuary will be focused on three major topics: (1) the variability of turbulent mixing under different flow conditions and external forcing; (2) the relations between mixing and flow properties such as shear, stratification and internal wave trains; and (3) a test of turbulent parameterizations used in numerical models.